Efficient Large Fractional Factorial Designs: Theory and Construction

Fractional factorial designs are among the most widely used experimental
plans in practice. Most existing researches are limited to small
fractional factorial designs. The objectives of this proposed research are
to develop a general theory and to construct efficient large fractional
factorial designs for practical use. The concept of moment projection
pattern is introduced to study design isomorphism. Linear programming
technique is used to study design optimality. Efficient algorithms are
proposed for constructing both regular and nonregular designs. The
concept of minimum moment aberration is utilized to study optimal blocking
schemes for both regular and nonregular designs. Coding theory is
employed to develop a general theory on minimum aberration blocking
schemes. Catalogs of efficient large fractional factorial designs are
built for practical use.

Experimental design is an effective and commonly used tool in scientific
investigation. Fractional factorial designs are among the most widely used
experimental plans in practice. Most existing researches are limited to
small fractional factorial designs. Progresses in science and technology
urge the study of efficient fractional factorial designs with both large
run sizes and a large number of factors. Some recent examples are computer
experiments in large scale simulation, high throughput screening in drug
discovery, and microarray experiments in biotechnology. The objectives of
this proposed research are to develop a general theory and to construct
efficient large fractional factorial designs for practical use.
Addressing the fundamental issue of design construction and selection, the
results of the proposed research can be quickly assimilated into graduate
courses on experimental design. New algorithms and efficient designs will
be made available online for broad and quick dissemination. The proposed
research has wide-ranging impact both theoretically and practically, and
will lead to remarkable new advances in design theory and better practice
in experimentation.